Salvage of Upper Cretaceous Angiosperm Flower-bearing Localities in N. New Jersey

Twelve late Cretaceous angiosperm fossil flower localities in northern New Jersey will be salvages and the materials prepared for study. The localities are terrestrial deposits and range in age from upper Cenomanian to upper Turonian and Santonian. Preliminary observation indicates these deposits are important because: (1) angiosperm floral fossils are remarkably abundant; (2) the flowers are remarkably well preserved and associated with wood, leaves, and insects: (3) the diversity is unusually broad and includes several major dicot groups and the earliest unequivocal monocots; (4) floral features of some of the samples are typically associated with specialized insect pollination syndromes. Consequently, immediate salvage has a high priority.